Participant Support for International Conference on Advances in Chemical Engineering

CTS-9700842 Gubbins Cornell University ABSTRACT Seven invited speakers from the U.S. will be provided partial support to attend the International Conference on Advances in Chemical Engineering, to be held at ITT, Madras on December 11-13, 1996. The conference is organized by a national committee, with advice from an International Scientific Advisory Committee. This is the first conference of this type to be held in Madras, although a similar Chemical Engineering conference was held in Bangalore about ten years ago. The conference possesses several unique features: (a) an opportunity to discuss and learn about the most recent scientific and technological advances in a broad range of areas of chemical engineering, particularly areas of current importance in Asia and Europe; (b) there will be an industrial session, with several keynote speakers and other presentations on R&D and New Technologies; ( c ) coverage of applied, as well as fundamental, aspects; (d ) discussions of recent and future trends in chemical engineering education with leading educators from India, Japan and Europe.